EAGER: Ultra Broadband Fully Integrated GaN Front End Integrated Chip

The Historically Black Colleges and Universities - Undergraduate Program (HBCU-UP) provides support to strengthen STEM undergraduate education and research at HBCUs. This EArly-concept Grant for Exploratory Research (EAGER) expresses the need for innovative research activity in integrated chip design, fabrication, and validation at Florida A&M University (FAMU). The project focuses on the development of fully integrated GaN front end chips covering a wide spectrum. This work will be accomplished via investigation of a novel transversal filter type circuit topology to boost the efficiency of power amplification. The establishment of this research effort will further enhance the research capacity at FAMU in direct response to the CHIPS and Science Act.

The goal of this project is to develop a novel transversal filter type broadband distributed power amplifier, a wideband radio frequency switch, a low noise amplifier, a fully integrated solution, and novel packaging and set up of an experimental validation test bench for the proposed chip. Additionally, the project seeks to 1) develop a course for integrated chip design, fabrication, and validation, 2) develop a summer research program for undergraduate students, and 3) share the developed course materials with other HBCUs promoting the research activities in semiconductor, chip design, and experiment validation.